Crustal Deformation in the Imperial Valley, California and the Intermountain Seismic Zone, Hebgen Lake, Montana

This research will investigate the nature and causes of historic crustal deformation in the Imperial Valley, S. California and the Intermountain Seismic Zone near Hebgen Lake, Montana. Previous investigations in both of these areas clearly indicate unusually large crustal deformations which are demonstrably associated with tectonic activity. Deformation in the Imperial Valley appears to be related to coseismic and postseismic effects of the 1940, M~7.1 and the 1979, M~6.6 Imperial Valley earthquakes and ongoing activity (seismic and aseismic) along the Brawley Seismic Zone. the anomalously large vertical and horizontal movements in the Hebgen Lake region are most likely due to postseismic viscoelastic relaxation following the 1959, M~7.5 Hebgen Lake earthquake.